Geometric Structures on Low Dimensional Manifolds

Abstract

Award: DMS-0604735
Principal Investigator: Michael T. Anderson, Claude R. LeBrun

Working both jointly and independently, Anderson and LeBrun plan
to study a cluster of related geometric structures on
low-dimensional manifolds. Their research program focuses on
relationships linking geometry to topological structures,
algebraic geometry, and theoretical physics. Jointly, Anderson
and LeBrun plan to study the existence and moduli of canonical
metrics on 4-manifolds, with an emphasis on the Kahler case.
Anderson will also investigate problems concerning asympotically
hyperbolic Einstein metrics, the AdS/CFT correspondence, and
mathematical aspects of general relativity. LeBrun will also
study the curvature of 4-manifolds, Seiberg-Witten theory,
extremal Kahler metrics, and the twistor geometry of holomorphic
disks. The proposed work is expected to have a significant
broader impact on two different fronts. On one hand, it will
promote further interactions between researchers in differential
geometry and those in topology, in algebraic geometry and,
especially, in theoretical physics. The project also has a
significant educational impact at the graduate level, in that
Anderson and LeBrun oversee a large number of graduate students
who are working on problems closely tied to the research
proposal.

The relations between mathematics and theoretical physics are at
the forefront of research in both disciplines, leading on both
sides to remarkable new insights and developments. Much of the
planned research activity takes its inspiration from current
attempts to bridge the gulf between Einstein's theory of
space-time geometry and gravitation (General Relativity), and the
quantum field theories that are currently understood to govern
the other fundamental forces of nature. Some of the research has
to do with the problem of describing all possible geometries of
4-dimensional universes governed by Einstein's gravitational
equations. One of the toolsto be used involves use of the
Seiberg-Witten equations, which originated in the theory of
short-range nuclear interactions, but nonetheless turn out to
play a major role in our understanding of the
large-scalestructure of many 4-dimensional universes. Other
aspects of the planned research are closely linked to
developments in string theory, which is arguably the most
promising and exciting avenue of research in theoretical physics,
and which has had a profound and multi-faceted impact on recent
progress in mathematics.